Oceanographic Instrumentation

9987816
Amos
This award to University of Texas at Austin will provide instrumentation for oceanographic research for use on R/V Longhorn, a research vessel operated by the university's Marine Science Institute as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a debubbler system for analysis of surface seawater and a transmissometer for study of water clarity throughout the water column. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Gulf of Mexico, during 2000 and future years.
***